1995 PFF: The Orchestration of World-Wide Middle School Learning Using Visualization and Telecommunications Technologies.

9553239 Songer Research associated with the development, orchestration and study of world-wide middle school learning in Atmospheric Science using visualization and telecommunications technologies. Teaching focusing on the application of learning and scientific research to diverse and interdisciplinary courses for teachers and graduate students in education, cognitive science, and computer science. ***